SBIR Phase II: Optimizaton of the Thermal Performance of Woven Fabric Composites

9505309 Lee This research is to optimize the thermal performance of woven fabric components. A micro-structure engineered material approach will provide the tool for predicting the radiative properties of multi-layer fibrous composites. The morphology of the material is accounted for through a solution to Maxwell's relations. Experimental measurements of the bi-directional and hemispherical transmittance and reflectance of the specimen will also be taken. A computer program will be developed for performing optimization and design analyses. The technology developed will result in a unique optimization software for the design of advanced fibrous composites and the optimization of existing materials. The design and improvement of such materials will ensure substantial cost savings for the development of advanced fibrous composites for applications in aerospace, industrial, and personnel fire-protection clothing.